US-Czechoslovak Materials Research on Phase Compatibility & Equilibrium Studies in Multicomponent Systems

The major objective of this U.S.-Czechoslovak cooperative research project between Dr. Rustum Roy of the Pennsylvania State University and Dr. Jan Mailing of the Slovak Technical University is to study the basic thermal, mechanical and dielectric properties of a family of ultra low expansion materials, known as the NSP-family (nasicon type termary and quarternary systems.) The researchers intend to em phasize phase equilibrium studies, drawing upon a compatability computation method developed at the Slovak Technical University. Its use should shorten time for systematic experimental study of such complex systems. Results should yield a systematic phase diagram and lead to our ability to characterize these NZP-type materials for their sintering behavior in controlled furnace atmospheres (i.e., oxygenic, reducing and humid, respectively.) This project in materials research fulfills the program objectives of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence.//